Mathematical Sciences: Analysis of Random Fields and Processes

The principal investigator will continue his work on applications of probabilistic techniques in local times and classical function theory, especially Bloch functions, gamma star functions, and lacunary series. The principal investigator will work at the interface between probability theory and classical function theory of classical analysis, i.e. the study of boundary behavior of analytic functions.